Accessing Accelerated Achievement

The Chattanooga Public School System will institute a policy of continuous improvement and renewal aimed at insuring that every graduate is fully prepared for his or her selected career path. Particular stress will be placed on careers in technology, math and science. Key to this project is the training and implementation of instruction planning teams in each school. Analogous to quality circles this small group of teachers an students will meet every week to reflect on the current pattern of curriculum and instruction and design changes to it. Every teacher, and a selected group of students, will participate in one planning team. Coordination of efforts among teams and across schools will be facilitated through a computer bulletin board network. National Science Foundation funds will be used for initial training of the teams and curriculum committee; for purchasing equipment, materials and services necessary to implement innovative instructional strategies; and for other "star-up" costs. Once instituted the teams will be self- regenerating and schools will be restructured to make planning team activity a permanent part of regular school activity.